Mapping an Ocean Sanctuary

This award provides funding from the Directorate of Geoscience to develop secondary school instructional materials that teach ocean science using Geographic Information System (GIS) data. The GIS-based instructional materials will be called "Mapping an Ocean Sanctuary" and will consist of five modules that will help the learner master GIS technology; employ GIS to study the surface and underwater geography of (and bathymetric, ecological, and geophysical data from) three national marine sanctuaries; collect geophysical and ecological data during field studies at the sanctuaries and use GIS to map and analyze the data; and share data and analyses with other students and schools via the Internet. The work is a collaborative effort between the Center for Image Processing in Education (CIPE) and the Sustainable Seas Expeditions (SSE). It will use data collected in the Monterey Bay, Channel Islands, and Florida Keys Marine Sanctuaries.